Small Frictions in Price-Setting and the Business Cycle

The purpose of this research is to analyze the macroeconomic consequences of small frictions in the setting of prices and wages. Two types of frictions will be considered: small costs associated with changing prices and wages and the fact that not all wage and price changes occur simultaneously, but are staggered over time. This research is important because these frictions may provide the heretofore missing micro-foundations of the Keynesian model of macroeconomic fluctuations. Specifically, this project will investigate the possibility that rigidities in real wages and prices increase the magnitude of cyclical fluctuations and that the reductions in average welfare are caused by costs associated with changing nominal prices. Further, the relationship between price stickiness and models of Keynesian coordination failures will be explored. With regard to staggered price-setting, the study will investigate the reasons why such staggering occurs and what the adverse affects of such price setting may entail.